A Review of the Informal Learning Research Literature in Science, Mathematics and Technology

Informal learning in math, science, and technology is an increasingly important vehicle for educating the public. Throughout their lifetime, the average citizen will spend a much greater amount of time in informal learning environments than in school. For these efforts to continue without benefit of understanding, the dynamics of what makes informal learning experiences work, is a waste of valuable funding resources. Research Communications Ltd. (RCL) proposes an effort to investigate what has been learned about informal learning in math, science, and technology and to develop some directions for future research in this important area. The first step in the process would be to review the existing literature in the three primary areas of informal education for math, science, and technology: television/radio, community projects, and science museums and technology centers with a focus on evaluation studies that have shown what strategies have worked and those that have not. The outcome of this effort would be a comprehensive publication of what is currently known about informal learning research in math, science and technology.